Group Actions and Hodge Theory in Commutative Algebra

Many of the equations that arise throughout mathematics and science describe objects with symmetry. Locating and measuring the singular points of such objects is a central problem in algebra and geometry. This project will develop new mathematical tools, drawing on ideas from geometry and the theory of symmetry, to study these singular points in three families of symmetric objects: bundles of vector spaces varying over a geometric space built from combinatorial data, varieties built from linear subspaces satisfying containment conditions, and systems of differential equations attached to spaces with a group action. The resulting tools will be implemented in Macaulay2, a widely used open-source software system for algebra and geometry, making the theoretical advances broadly usable by students and other researchers. The project also includes the training undergraduate, graduate, and high school students in mathematical research.

The project’s research program will have three interconnected components. The first will develop new algebraic complexes to compute the cohomology of toric vector bundles uniformly across all line bundle twists, with the aim of proving sharp vanishing theorems. Applications in this direction include settling long-standing questions on the defining equations and syzygies of projective toric varieties. The second research component will use a Hodge-theoretic method, combined with representation-theoretic techniques from Kazhdan-Lusztig theory, to compute the local cohomology modules supported in Schubert varieties inside generalized flag varieties, and will use this data to characterize higher Du Bois and higher rational singularities, two classes of mild singularities that have recently gained significant interest. The third will develop a generalized homology theory for tautological systems of differential equations attached to reductive group actions, extending the classical theory used for toric hypergeometric systems. The goal here is to relate the rank of these systems and their dependence on parameters to geometric properties of the underlying orbit closures, including the Cohen-Macaulay property. Across all three components, the unifying methodology will be to exploit group symmetry—toric, Schubert, and reductive—together with tools from algebraic geometry and representation theory, to render computations that are otherwise intractable.